ITR: Learning and Measuring Perceptual Similarity

Image retrieval has been an active research area for many years, but
two fundamental problems remain largely unsolved: 1) How best to
learn users' subjective query concepts, and 2) How to measure perceptual
similarity with significant accuracy. The first problem concerns the
completeness of formulating a query concept, e.g., how to formulate a
query such as ``animals,'' ``cathedrals,'' or ``aircraft.'' The second
problem concerns search accuracy, i.e., given a learned query concept,
how to find all images that match that concept.

To tackle these two fundamental problems and to ensure that our
solutions are scalable, this project has four specific targets.
First, we plan to develop novel active learning algorithms that
quickly learn users' subjective query concepts (thoughts and intents)
despite time and sample constraints. Second, we will design
semi-automatic image annotation and annotation refinement methods
for assigning semantic labels to images in order to support multimodality
query-concept learning and information retrieval. Third, we will
devise perceptual distance functions for improving accuracy of visual
searches. For instance, once a query concept such as ``enemy vessels''
is learned, we want to find every matching object in the surveillance
database, not missing any. Finally, we plan to conduct validation
studies} on developed learning algorithms, using experimental data
provided by colleagues at various institutions (including IBM research
centers and Fine Arts Museums of San Francisco).